U.S.-Mexico Cooperative Research: Undergraduate Ethnobotanical Research in Mexico

9813796
Pozos
This U.S.-Mexico Award will leverage funding from a National Institutes of Health-supported Minority International Research Training Program award to San Diego State University for the purpose of providing international research experiences for underrepresented students. NSF support is aimed at expanding the currently supported ethnobotanical/pharmacological research in Mexico to include the development of plant databases and chemical characterization of plants being collected.
NSF support will be used to fund three students for two months of ethnobotanical research under the supervision of Prof. Robert Pozos and Dr. E. Bejar from San Diego State University and Mexican researchers at the National Institute of Anthropology and History (INAH) in Morelos and the National Autonomous University (UNAM) in Mexico City. One student will conduct ethnoanalyses of plants collected in Guerrero, Mexico; the other two will isolate and pharmacologically evaluate isoflavonoids from Jicama plants and conduct plant classification studies at UNAM in Mexico City. At the end of the research experience, students will be required to write a scientific report and present results of their research to other students on campus.
***